Collaborative Research: BEST - A Service Proposal to Examine Hydrographic Structure and Nutrients over the Eastern Bering Sea Shelf During Summer

Whitledge 0732773
Univ. of Alaska Fairbanks

Funds are provided to collect, quality control, analyze, and distribute to all BEST investigators the core physical and chemical observations collected on the BEST summer cruise as a service component of the larger ecosystem program. The PIs will also examine the persistence of along- and across-shelf gradients of temperature, salinity, fluorescence, oxygen, nutrients and currents by integrating data from the hydrographic surveys in summer with trajectories from satellite-tracked drifters, data from other cruises, and data from long-term moorings (funded elsewhere).